Workshop on Revitalizing the Engineering, Mathematics, and Science Curricula via Symbolic Algebra

A five-day workshop for 30 faculty members drawn from engineering, science, and mathematics, will focus on using computer algebra as an effective tool in teaching, revising curricula, and making the contents of their courses more conceptual. In the interdisciplinary atmosphere of the workshop, participants will conceive and create units suitable for incorporation into the undergraduate curriculum. Dates: Summer 1992Contact: Mark A. Yoder